PostDoctoral Research Fellowship

This award is made as part of the FY 2021 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Dominique Maldague is "Decoupling and related problems in Fourier analysis." The host institution for the fellowship is Massachusetts Institute of Technology, and the sponsoring scientist is Gigliola Staffilani.